CAREER: Architecture-Based Support for Software Application Families

Proposal Number: CCR-9985441
Title: CAREER: Architecture-Based Support for Software Application Families
Principal Investigator: Nenad Medvidovic, USC

ABSTRACT
----------------
Software architecture research has yielded numerous techniques for
developing complex applications by focusing on the composition of
coarse-grain software components. However, existing architecture-based
approaches have typically modeled systems as "one of a kind;" additionally,
they have failed to ensure consistent transfer of architectural properties
to a system's implementation. Realizing the full potential of software
architectures requires a more realistic approach, in which systems are
modeled and implemented as members of an application family. This project
focuses on the design, implementation, and empirical evaluation of
techniques for supporting architecture-based development of software
application families. Three general issues are studied: (1) notations for
modeling application family architectures; (2) mechanisms for refining
family architectures into their implementations; and (3) nature of software
connectors--services facilitating component interactions--and their role in
controlling non-functional properties (e.g., performance, security) across
applications in a family. This research will augment the current
model-centric focus on architectures with a system-centric perspective and
provide principled support for heterogeneity and reuse, two cornerstones of
developing application families. The research will also serve as a vehicle
for modernizing the software engineering curriculum, by exposing students to
the impact of architecture-based and application family-based development on
fundamental software engineering principles